High Performance Network Connections for Science and Engineering Research - HPNC: Visible Human Co-Laboratory

The proposal plans to connect UCHSC to Abilene via the Front Range GigaPoP to support NIH funded research requiring a high performance network connection. This research includes the next generation of the Visible Human Project as well as research in the Center for Computational Pharmacology.